NanoForum US-CH 2003 US-Swiss-Forum on Nanoscience and Nanotechnology: With a focus on Nanomechanics and Single Molecule Research

Abstract.
The US-Swiss 2003: Nano Mechanics and its Application and Single Molecule Research Forum, third in a series of collaborative forums with the Swiss National Science Foundation, is proposed to be held on the campus of the University Basel in Switzerland from the 13th to the 15th of October, 2003. This Forum focuses on the role of nanoscience in mechanics of materials and in single molecule studies.
The Forum will bring together leading scientists from the US and Switzerland who are working in the fields of nanomechanics and single molecule research. Younger researchers (postdoctoral research associates and assistant professors) have been encouraged to attend this exceptional meeting. The format of the meeting will include lectures by leading scientists in the areas of nanomechanics and single molecule research and posters covering on-going research from both US and Swiss research groups. Arrangements for impromptu discussions among participants and opportunities for forming new collaborative networks will be provided.
Rodney S. Ruoff, Professor and Director, NU BIMat Center, Northwestern University, is the US organizer. Hans Leuenberger, Professor of Pharmaceutical Technology, University of Basel, and Vice President of the Swiss Academy of Engineering Sciences, is representing the Swiss contingent. All Swiss participants will be supported by SNF program funds.